Summer Research Apprenticeship Program in Science and Mathematics

Clarkson University will initiate a five-week, residential, multidisciplinary Young Scholars project for 25 students entering grades 11 and 12. Participants will work with faculty research mentors on problems which are part of current research activities, becoming an integral member of the research team. Faculty will be included from various departments including Chemistry, Biology, Mathematics and Computer Science, Physics and Psychology. The program will include lectures, workshops and seminars on the following: The Nature of Scientific Investigation and Research, Laboratory Safety, Presentation of Scientific Results, Personal Exploration, Career Development and Scientific Ethics.